Collaborative Research: Validity Evidence for Measurement in Mathematics Education

The purpose of this proposal is to convene scholars at a two-day conference to closely examine validity-related measurement issues, create a guidelines for the field of mathematics education research that addresses key ideas (e.g., validity, validity arguments, evidence for validity and measurement at-scale), and set a clear pathway for scholars to discuss quantitative measurement within mathematics education. Invitees will include a mix of young, older and diverse scholars in mathematics education research. Products include refereed journal articles along with a website.

The workshop will engage the Mathematics Education, Policy, Statistical, Psychometrics and other education research communities in examining and critiquing measurement validity evidence of mathematics education research with the long-term goal of increasing the quality of quantitative inference in mathematics education research (to include improvements in the training of doctoral students).